Collaborative Research: An I/UCRC Planning Grant to Create A Vision Enhancement Technology Center (VETC)

An Industry/University Cooperative Research Centers (I/UCRC) planning meeting has been awarded to determine the feasibility of the University of West Virginia with the Georgia Institute of Technology of establishing a new I/UCRC for Vision Enhancement Technology. West Virginia University brings a core team of researchers in this field, a close working relationship with state agencies, a model virtual environments laboratory, and clinical research and outreach facilities. The Georgia Institute of Technology has engineering faculty with expertise in electrical engineering, rehabilitation engineering, industrial design, optics, computer science and other disciplines that will bring their resources together to focus on the needs of the low vision and blind populations.